Novel High Purity Oxygen Generator

The proposal aims at developing a combined process of membrane/pressure swing adsorption to generate high-purity oxygen. Membrane processes will generate a mixture of O2/argon (since they are both fast permeants). The O2/Ar mixture is then easily separated by a PSA unit. Funding is recommended.